Installation of Scaffolding Tower at Kosan, Korea: Aerosol Characterization Experiment (ACE)-Asia Surface Network Implementation, Operations, and Coordination

ACE-Asia is a multi-institution, international program to study the chemistry and optical properties of aerosols in outflow from eastern Asia. This project involves the installation of a 20 meter tall air sampling tower with outrigger platform at Kosan, Cheju Island, South Korea. This tower will support the sampling and analysis activities of numerous ACE-Asia ground investigators.